MRI: Acquisition of an X-ray Photoelectron Spectrometer for the Development of Materials and Catalysts for Next Generation Energy Solutions

With this award from the Major Research Instrumentation (MRI) and the Chemical Research Instrumentation and Facilities (CRIF) programs, Virginia Polytechnic Institute & State University will acquire an X-Ray Photoelectron spectrometer (XPS) for use in energy related research and education. XPS quantitatively determines the elemental/chemical composition, empirical formula, and electronic state of elements within materials. The data from this analytical technique will be used to explore emerging energy technology and significantly improve the understanding of the effect of surface chemistry on efficacy. This will impact the energy field from storage to generation. The award will also enhance the education and training students in energy solutions. A multi-level education plan will introduce the fundamentals of XPS and its application to solve current scientific problems through laboratory modules and a summer short-course. It will be used in a collaborative relationship with Radford University and Roanoke College.

The instrumentation will enhance research across disciplines, especially in areas such as (a) preparing low cost, high efficiency solar cells; (b) studying artificial photosynthetic metal organic framework thin films; (c) producing hydrogen photocatalytically from methanol; (d) investigating pseudocapacitors and solid oxide fuel cells; (e) studying conducting soft materials for energy storage and conversion; (f) developing flexible solar cells; and (g) preparing polymer-supported water reduction photocatalysts.